Undergraduate Faculty Summer Workshop in the Biology and Ecology of Corals and Coral Reefs

This project will focus on a three-week workshop in the biology and ecology of corals and coral reefs for undergraduate faculty in the biological sciences. The workshop will provide experiences in concepts and investigative methods(spectroscopy, calorimetry,elctrophoresis) that will enhance the backgrounds of these faculty as well as their approaches to undergraduate instruction in the biological sciences.